Instrumentation for the Processing and Portrayal of Archaeological and Geophysical Data

This project provides geophysical instruments used by archaeology students to collect and portray data on the subsurface nature of archaeological sites. The primary instrument is a proton magnetometer that can sense disturbances caused by the activity of prehistoric inhabitants and thereby establish where productive excavations may be carried out. Supplementing the geophysical instruments are a field computer, laboratory computer, and related software that allow the data to be stored, processed, analyzed and displayed. Such equipment is becoming an important supplement to traditional field methods as it employs non-destructive techniques and can be pursued without disturbing archaeological sites. Using the instruments requires the student to apply knowledge in basic geologic and cartographic principles, trigonometry, and surveying practices. The institution is matching the NSF grant with an equal amount of funds.